Elliptic and Parabolic Equations for Partially Ordered Materials in Applied Fields

Mathematical models for superconducting and liquid crystal materials
in the presence of applied fields will be analyzed. First, the
behavior of solutions to the Ginzburg-Landau system of steady-state
and time-dependent nonlinear equations with realistic boundary
conditions in the presence of an applied magnetic field will be
investigated. Second, the behavior of solutions to the system
describing liquid crystals in applied fields is to be analyzed.
The mathematical models for these problems are systems of partial
differential equations. Methods to be employed in this project
include maximum principles, bifurcation theory, regularity,
energy estimates, and large-time analysis of partial differential
equations, as well as numerical methods.

Modern technological devices such as superconducting films and
liquid crystal displays typically are operated in the presence of electric or
magnetic fields. It is therefore necessary to understand how these fields affect
their performance. In the case of superconductors, external magnetic
fields are present. This can result in nonsuperconducting sites
in the material (called vortices) which move and therefore degrade
the device performance. Engineers have tried to control these losses
by introducing inhomogeneities in the material that curtail the
motion of vortices, but it is not well understood how all of these
effects interact and how best to use inhomogeneities to achieve
stability. In the case of liquid crystals, magnetic and electric
fields are used to change optic orientations. This is essential to the
operation of display devices and visual screens. The materials in this case
are mixtures of liquid crystals and polymers, resulting in more complicated
phenomena than in the case of superconductivity. Still, the mathematical
issues are closely related. The award will support research on mathematical
models that will give basic insights into both types of problems and help to
devise effective numerical simulations.